A Converse Lyapunov Theory for Scalable Analysis and Control of Nonlinear Power Systems

This NSF project aims to improve power grid stability by developing new methods to analyze, predict and stabilize large scale networks of interconnected nonlinear dynamic systems. The project will bring transformative change by improving the precision of both model-based and data-based methods while dramatically increasing the scale of the networks these algorithms are able to analyze. The intellectual merit of the project includes the use of converse Lyapunov theory to leverage network structure in order to reduce the computational complexity of power grid analysis and control, while also proposing a class of performance metrics to characterize the response of these networks to disturbances. The broader impacts of the project include improvements in our ability to predict and mitigate power grid failures, resulting in more reliable national industrial and commercial infrastructure.

The fundamental problem in maintaining control of the power grid is that the underlying generator dynamics are inherently nonlinear. While convex optimization and data-based methods are used to study nonlinear systems by parameterizing energy metrics (Lyapunov functions), the dimensionality of such functions grows exponentially with the size of the network – limiting their application to small-scale networks. In this project, we use converse Lyapunov theory to extend such methods to large-scale networks by exploiting system structure. First, we consider networks with a large number of states but relatively few nonlinearities, and establish conditions for existence of partially-quadratic Lyapunov functions – which can be parameterized much more efficiently. Second, we consider data-based methods and show that real-time trajectory measurements can provide labelled data on the converse Lyapunov function directly -- obviating the need for knowledge of the vector field or large high-dimensional datasets. Finally, we propose universal metrics of performance and use converse Lyapunov theory to provide equivalent Lyapunov characterizations of this performance. These metrics are then quantified using computational methods such as Sum-of-Squares.